Distributed Control in Dynamically Reconfigurable Architectures

This project proposes an innovative multi-layered array of computing elements in which dynamic reconfiguration of the interconnection structure is possible. Reconfiguration will be performed using distributed control, eliminating a potential performance bottleneck and single point failure (hardcore) of a centralized control mechanism. An architecture of this type provides an increased level of system performance not typically found in current parallel processing systems. Through the reconfiguration process, the underlying architecture can be optimized to improve algorithm performance, faulty modules can be isolated, and the yield of wafer scale based technology can be improved. They plan to investigate this architecture for more efficient utilization of spares and to provide on line fault detection and data roll-back features. Second, they propose to optimize the reconfiguration algorithm for cost effective implementation in the emerging wafer scale integration technology. Finally they plan to extend the reconfiguration algorithm to permit its use on alternative parallel processing architectures such as hypercubes and tori.